Applications of frames to speech recognition, distributed processing, bio-medical engineering and more

Casazza
DMS-0704216

The investigator and his colleagues work on designing
Hilbert space frames for applications. This involves working
directly with the groups needing such frames such as Siemens
Corporate Research, the Bio-Medical Engineering Center at
Carnegie Mellon University, and the Digital Signal Processing
Center in the Electrical Engineering department at Rice
University. One project involves designing frames and algorithms
for doing signal reconstruction without phase. This project is
designed to remove certain background noises from a signal so
that the voice signals are clearer. Another project involves
answering the question: What is the role and what can imaging do
for systems biology? The goal is to have distributed yet
integrated large bioimage databases that would allow researchers
to upload their data, have it processed, share the data, download
data as well as having platform-optimized code, all in a common
format. A third project involves doing signal reconstruction with
erasures. The investigator has designed a system that accounts
for erasures without any extra coefficient calculations, which is
both fast and accurate. This method needs to be custom designed
for the myriad of applications where there are transmission
losses or erasures. Another project involves designing "fusion
frames" for problems in distributed processing. This requires
designing localized frames that globally fuse data both quickly
and accurately -- especially in the face of losses. These are
used for a variety of problems including sensor networks.
Another project is geared to finding equal-norm equi-angular
Parseval frames and mutually unbiased bases. These frames are
used in quantum state tomography, quantum cryptography and
foundational issues in quantum mechanics.

The signal reconstruction project is designed to clean up
certain types of audio signals that have noise embedded in their
phase to present a clearer signal. Another project involves
sensors that are used to observe the world around us. The amount
of sensed data that is currently being collected is more than can
be collected in one place for analysis. The investigator and his
colleagues are designing intelligent ways to reduce the amount of
raw data that is analyzed, and this necessitates understanding
the nature and role of the redundancy in the measurements.
Making mathematical contributions to our fundamental
understanding of redundant information could advance the
engineering solutions to problems in environmental monitoring
(including agricultural technology), military surveillance,
understanding the operation of sensory neural systems, and
improving general data collection methods that efficiently turn
the analog events in the natural world into digital signals ready
for analysis. Bioimaging has a serious need for accurate
classification, some of which involves life and death decisions
and are currently very sensitive to misclassification (such as
false negative decisions in detecting cancer). The goal here is
to design systems that are able to classify with close-to-perfect
accuracy.